Interaction of Electromagnetic Fields with Human Body

The many uses of electromagnetic (EM) energy have produced an environment in which humans are subjected to exposure to a wide band of frequencies. The interaction of environmental EM energy with the human body is the rationale behind this program. The purpose is to be able, with theoretical predictions and experimental measurements, to express the EM field induced on the body surface and fields within the tissue.